Investigation of Jetting Insertion Procedures for Rapidly Deploying a "Self-Boring" Pressuremeter in Clays

Physical properties of soils are required in analyzing a variety of engineering problems. Properties measured in the laboratory differ from real field properties because samples are disturbed when removed from the ground. Testing the soil in place in the field is expensive and time-consuming. This research is directed toward developing a much more rapid technique, than presently exists, for insertion of a testing device, called a pressuremeter, in the ground, thus leading